CDI-Type I: Collaborative Research: Collaborative Multi-Robot Exploration of the Coastal Ocean

CDI-Type I: Collaborative Research: Collaborative Multi-robot
Exploration of the Coastal Ocean (COMECO)

Overview: The coastal ocean is a complex environment driven by the interaction of atmospheric, oceanographic, estuarine/riverine, and land-sea processes, which result in dynamic coastal features such as blooms, anoxic zones, and plumes (estuarine, oil, pollutant). Effective observation and quantification of these features require simultaneous, rapid measurement of diverse water properties to capture its variability. This project aims to synthesize and understand the basic principles of environmental sensing based on the integration of adaptive robotic sampling with human decision-making. The techniques being developed augment existing ocean models and aid coastal exploration to ensure that robots are present at the "right place and time" to provide the most effective measurements.

Technical Description: The absence of a single model assimilating all available physical and biogeochemical data to provide a reliable view of ocean features favors the combination of human expertise, model refinement, and analytical adaptive sampling adopted in this project. Human decision-making is coupled with probabilistic modeling and learning in a decision support system enabling environmental field model discovery and refinement. The project extends the state of the art in multirobot adaptive sampling by investigating the relationship between environmental field structure and sampling performance, developing improved field boundary tracking techniques, and creating methods for multi-resolution, multivariable sampling. These advances are being made by addressing two broad research challenges. The first, Model-Based Asset Allocation, involves synthesis of large-scale, low-resolution data with human scientific expertise to make timely, model-informed asset allocation decisions. The second, Sampling-Based Model Refinement, involves small-scale, high-resolution autonomous cooperative selection and execution of robot sampling trajectories. Both challenges involve the handling of multivariate, multi-resolution, temporally evolving fields. The project includes a feasibility and evaluation study in coastal ocean exploration using underwater robots.

Broader Impacts: Decision support with diverse data integrated in a form that is interpretable by a non-computer specialist will have a broader impact applicable to a range of domains, including ocean and space exploration, environmental disaster response and military andhomeland security. The ocean science community will have a new and powerful tool to augment their understanding of dynamic coastal phenomena and policy makers an important tool to aid decision making impacting coastal communities. It is expected that the methods developed will be broadly applicable to the general task of goal-driven exploration and characterization of large areas. The project will involve graduate students who will be trained in an interdisciplinary context. The project results will be disseminated in the peer-reviewed scientific literature as well as via the project website at: http://robotics.usc.edu/comeco.html